NMR Instrumentation for Undergraduate Curriculum Enhancement

9350909 Elakovich The project will purchase a Fourier Transform NMR for use in seven courses of increasing level impacting over 300 students per year in addition to those students pursuing undergraduate research. The 1H and 13C nmr capabilities will be used to confirm the structure of synthesis products, identify unknowns, correlate empirical calculations with actual chemical shifts to identify unknown compounds, examine the temperature dependence of chemical shifts, explore the effects of pulse width, rate, and number on the collected spectrum, determine thermodynamic quantities, and study enzyme activity. The project will augment current efforts to encourage minorities and women, who make up a significant portion of the student population as well as the population in the state, to pursue science education. An outreach program to local high schools will also be introduced. In addition, students and faculty of five area historically Black colleges will have access to the instrument. This project should have a very positive effect on the number of women and Blacks who choose to study chemistry. ***